CISE Research Instrumentation: Support for System-on-a-Chip and Embedded System Research

EIA-9911078
Margaret Martonosi
Princeton University

CISE Research Instrumentation: Instrumentation Support for System-On-A-Chip and Embedded System Research

The Department of Electrical Engineering at Princeton University will purchase a high-end server, workstations, networking hardware, and CAD tools, which will be dedicated to support research in computer engineering. The equipment will be used for several research projects, all generally in the areas of Computer Architecture, Computer-Aided Design, and particularly focused on advancing design and architecture techniques for embedded systems and systems-on-a chip.

In a fundamental paradigm shift system design in the semiconductor industry, entire systems are being built on a single chip, using multiple embedded functional blocks called cores. This has been made possible by the ever-increasing density of chips. The current 0.25-micron technology has made it possible to integrate tens of millions of transistors on one chip, and considerable interest is focused on discussing what the contents of billion-transistor systems-on- a-chip (SOCs) ought to be.

We propose to develop algorithms and tools to provide key technologies with breakthrough potential to semiconductor companies,and to develop efficient software environments and tools to deal with all aspects of the SOC design problem.